Electron Tunneling Studies of Ultrathin Normal Metal Films

It is proposed to investigate the enhanced electron-electron interactions that occur in disordered, two-dimensional metallic systems. Electron tunneling, a direct probe of the interactions, will be employed. Through these studies it is hoped to refine our current understanding of the metal/insulator transition in disordered materials.